Network Protocols and the Causes of Chaotic Traffic

Recent empirical studies have shown that self-similar traffic models, which are rooted in chaos theory, may be more appropriate than the models typically in use for network traffic. Without an understanding of the causes of this self-similar behavior, it is difficult to say how widely applicable these models are, or what if anything should be done to mitigate the will explore whether network protocols themselves can make traffic appear chaotic over time scales of engineering interest, and if so, whether protocol modifications might help. This will be achieved by simulating realistic models of a variety of networks, present and future. In each simulation, a well-behaved (non-chaotic) model for input traffic will be employed, and it will be determined whether the network protocols can turn this well-behaved input into chaotic or self-similar traffic flows.